NSF Young Investigator:Investigation of Sparse Resultants and Polynomial Systems

Two lines of research will be pursued. The first is to develop a hybrid symbolic-numeric system for solving systems of polynomial equations numerically. For this, symbolic algorithms for global root separation will be combined with local numerical methods for root refinement. One task in the project is to determine the feasibility of a hybrid Groebner basis routine which may deal with inputs more general than ordinary polynomials. The quotient algebra module is noteworthy because it reduces both the computation of resultants (for general algebraic feasibility ) and the computation of trace forms (for real root location). The other modules build up, layer by layer, the tools necessary to effectively isolate and refine all solutions of a system of polynomial equations. The second research direction is to analyze the structure of sparse resultants. Sparse polynomials arise frequently in important applications, so computational advances in dealing with them have much practical significance. It is planned to investigate resultant equations for systems of sparse Laurent polynomials. There are important relationships between the combinatorics of parameters associated with such systems and the solutions of polynomial equations. Any knowledge of such structure feeds back into computational methods, e.g., limiting a priori the types of systems which may have solutions of various sorts.